Slag Foaming and Reactions

This project will examine the effect of coke and char in controlling slag foaming in steelmaking. The slag must be maintained at a sufficient level to prevent excessive reaction of the steel with the atmosphere and to provide a stable vehicle for post combustion, but must be sufficiently permeable to reaction gases venting from the melt to avoid explosions. While understanding of foam production and maintenance has been largely empirical in the past, the investigators have recently developed fundamental understanding of the dependence of the foaming characteristics of the slag which depend only on the measurable properties of the slag. The effect of cake and coal char in controlling foaming, the effect of bubble size on foamability and the foamed slags relevant to managanese smelting slags will be investigated. Effective control of slag formation would improve the productivity, competitiveness and safety of the US steel industry. It may also make possible the development of direct steelmaking from coal, eliminating the intermediate step of coke production.